Training in Nonlinear Dynamics

ABSTRACT This award for $444,000 to Duke University is part of the Graduate Research Traineeship program of the Engineering Directorate. The objective of the University's effort is to provide eight highly qualified trainees with the opportunity to concentrate their doctoral level studies on nonlinear dynamics, a fundamental discipline that promises to illuminate many complex problems of high engineering and societal importance. The trainees will be recruited in large part from academically non- traditional backgrounds. New recruitment activity for the trainees will be concentrated at basically liberal arts, predominantly Black schools in the region around the university. The objective for the individual trainees is that they acquire the expertise to become leaders in university and/or industrial research in this challenging and important discipline.